Collaborative Research: Distributed Collaborative Computing and Adversity

This project advances the state-of-the-art in distributed collaborative
computability in the presence of adversity. This is accomplished by
establishing complexity bounds for fundamental distributed computing
primitives. The key problems requiring distributed collaboration
include: performing a common set of tasks in a distributed setting,
modifying shared memory in a parallel setting, distributed
collaborative scheduling, collective coin-flipping and leader
election, and algorithms for gossip and consensus in message-passing
settings. This research is pursued along two complementary directions:
(1) distributed computability in abstract information models, and
(2) distributed algorithmics in specific models of computation.
Information models are tools that model information in distributed
systems. Information models capture essential features of wide classes
of low-level computing models: by proving strong bounds in select
information models, this research extracts new facts about distributed
computation in extant low-level models and expands the understanding
of the essential ingredients of distributed computation. Information
models facilitate reasoning about distributed algorithms in a fashion
insulated from the idiosyncrasies of particular low-level models, e.g.,
shared-memory or message-passing models under various assumptions about
synchrony. The second research direction supports the information model
research by exploring fundamental properties and intrinsic limitations
of distributed computing environments from an algorithmic point of view.
This research considers models of computation focusing explicitly on
the means of communication used by multiple collaborating processors.
When studying failures or asynchrony, each of the models is augmented
with an adversary that interferes with the communication. The goal is
to develop algorithms that are efficient with respect to a composite
complexity measure simultaneously reflecting several standard complexity
measures (e.g., time, rounds, communication). Together, these approaches
address the problem of distributed algorithm design and analysis by
treating high-level information flow separately from the underlying
algorithmic building blocks.

Broad impact:
This project, as a whole, demonstrates the feasibility of a new approach
to the problem of modeling distributed computation. In this "information
model" approach, one trades problem generality for model independence;
that is, by focusing on highly specific assumptions about information
flow (which restrict the family of computational problems captured by
the model) one obtains results relevant to a wide class of low-level
computing models. Such a framework is quite appealing for the study of
distributed computing which, unlike uniprocessor computing, has
suffered from steadfast disagreement about the validity of extant
low-level models.

The proposed research involves several well-prepared graduate
students. The project, while addressing issues of interest to
the entire distributed computing community, is an opportunity for
these students to apply tools from applied mathematics to problems in
computer science, become expert with extant low-level computing
models, and engage in original research in the foundations of
distributed computation.